Evaluation of Coastal Response to Predicted (IPCC) Sea Level Rise from Holocene Stratigraphic Records

9905230
Anderson

Preliminary data from the Galveston Bay-Trinity/Sabine incised valley study area indicates that two episodes of rapid shoreline retreat occurred during the Holocene in response to sealevel rise. The timing and rate of coastal change during these periods remains problematic. The questions addressed in this study are: 1) how rapid were the landward shifts in coastal environments and barrier shoreline submergence events? And 2) what length of time is required for coastal environments to reestablish equilibrium? To answer these questions, a transect of long sediment cores (40 m deep) up the Trinity valley axis will be acquired and examined for flooding surfaces that correspond to those observed in seismic records. Age dates obtained near flooding surfaces within each core will constrain the timing of each event and rates of change.